Advances in Computational Methods for Transport Phenomena Lexington, KY - January 7-9, 1991

A Symposium on "Advances in Computational Methods for Transport Phenomena" will be held at the University of Kentucky in Lexington, January 7- 9, 1991. The objective of this symposium is to bring together the leading numerical modelers working in the area of transport phenomena to share fundamentals of the new algorithms being used with the current enhanced high-performance computational power and to discuss potential applications. The program will consist of four two- hour plenary lectures with twelve thirty-minute application lectures. The following four topics will be discussed: 1. New developments of the adaptive finite elements method, with application to reacting flows and turbomachinery. 2. Upwind techniques for water quality and two phase flow applications. 3. Finite element and finite difference methods for turbulent flows, non-Newtonian flows, coating flows, and crystal growth. 4. Finite element methods with back diffusion with application to geophysical flows. 5. Application of massively parallel algorithms to transport phenomena modeling.